Hawaii Ocean Mixing Experiment: Modeling Component: Internal Tide Generation

Merrifield 9819519
Funding is provided to conduct a large coordinated experiment near the Hawaiian Ridge to determine whether sites with rough topography are responsible for the mixing of the global ocean. The goals are to identify the major energy pathways for ocean mixing and achieve an approximate energy budget for the region. This modeling effort will focus primarily on the issue of tidal scattering as an energy source for ocean mixing using two numerical models of the baroclinic (depth-dependent) tide.